Administration, Maintenance and Development of the La Selva Biological Station, Puerto Viejo de Sarapiqui, Costa Rica.

This award provides partial support for operation and maintenance of the world's premier tropical moist-forest research station, located on the northern tip of a 125,000 acre national park in Costa Rica. The La Selva Biological Station is a 4,000 acre reserve and experimental forest that is owned and operated by the Organization for Tropical Studies, a consortium of 41 U.S. universities and research institutions, the University of Puerto Rico and four Costa Rican institutions on higher learning. The station is fully equipped with scientific instrumentation, computers, etc. to facilitate a full range of ecological research from soil gaseous fluxes involved in global warming to the ecological and evolutionary dynamics of forest composition. Room and board accommodations are available for 72 persons. La Selva attracts an international clientele of scientists who use the laboratories, forest reserve and experimental lands, and who share their expertise in basic research--some of which has relevance to stemming the tide of tropical deforestation and its global repercussions.